CCF-FET: Small: Enhanced Quantum Reservoir Computing via Non-Markovian Environment

Artificial intelligence systems today demand enormous computational resources, consuming vast amounts of energy and requiring large-scale hardware. This project addresses a fundamental question: can a single atom, interacting with light inside a tiny waveguide, perform the complex computations normally reserved for large networks of processors? The research team will investigate a radically minimalist approach to machine learning hardware by exploiting quantum-mechanical memory effects — the ability of the atom’s environment to store and feedback information over time. If successful, this work could lay the foundation for ultra-compact, energy-efficient computing devices suitable for real-time processing and edge applications where power and size constraints are critical. The project also supports workforce development through a quantum boot camp for high-school and undergraduate students, integration of research results into university coursework in quantum optics and machine learning, K–12 outreach in collaboration with local organizations, and open-access dissemination of software tools and publications.

This project develops a quantum reservoir computing framework in which a single two-level atom, strongly coupled to a mirror-terminated waveguide, serves as a universal computing reservoir. The waveguide supports a continuum of optical modes that interact through the atom, and the mirror creates coherent time-delayed feedback that renders the dynamics non-Markovian. By adjusting the waveguide length, the degree of memory in the environment can be continuously tuned, transitioning the system between memoryless and strongly non-Markovian regimes. The research pursues two objectives. The first objective tests whether non-Markovian quantum environments yield greater reservoir complexity than their Markovian counterparts, as quantified by new complexity metrics developed within the project. The second objective tests whether the atom-waveguide system can approximate arbitrary input–output mappings — the hallmark of universal computation — by measuring quadratures of an increasing number of optical modes. Numerical simulations employ a matrix product state approach using time-bin bosonic fields to efficiently handle the exponentially large Hilbert space. Performance is benchmarked against classical reservoir computers on tasks including chaotic time-series prediction, nonlinear waveform classification, and handwritten digit recognition. The results will clarify the computational role of environmental memory in quantum systems and may establish a path toward single-device universal quantum reservoir computers.